Increasing Security Expertise in Aviation-Oriented Computing Education: A Modular Approach

This project produces course modules related to critical aspects of aviation for internal use and projected for external distribution. Modules are considered to be a part of a course, developed from both technical and policy perspectives, integrated with other course materials, involving both labs and lectures, and presented to bring the topic alive, and leave a lasting impression on the student's professional attitude. The first step of the project involves both external survey of the field and identification of potential module partners (importing and exporting) and internal examination of engineering and policy curricula for most productive module injection and evaluation. The long-range objective is meeting the criteria for curriculum and institutional certification as a center for academic excellence in information assurance education. The modules have an aviation engineering orientation, thus potential high impact on the aviation and related industries. The project should have a high impact on the institution, faculty, and students as well. Results are disseminated as both publications and packaged courseware with extensive website support